Synthesis of Data in the Nankai Trough in Support of IODP Seismogenic Zone Drilling

ABSTARCT
PI: MOORE
INST. HAWAII-MANOA
PROPOSAL # 0137224

Award is for a project to acquire and analyze all available marine seismic reflection data from the Nankai Trough region. This region is a high priority locality for drilling into an active seismogenic zone; an important objective for the Integrated Ocean Drilling Program. The goal of this study is to identify the best transect along which to acquire the 3D seismic surveys necessary for IODP rise drilling in the Nankai Seismogenic Zone, and to locate the best sites for non-riser drilling of seaward reference sites and landward prism test sites. This work will make it possible to assess globally important subduction processes such as the effects of seamount subduction /collision on accretionary prism evolution.